CAREER: An Integrated Technology/Circuit CAD Environment for High Performance Communication Systems

This research explores methods and techniques for a design and simulation environment with the target application being high performance and high frequency communication circuits. Within the simulation environment a designer will have access to a suite of models of varying accuracy and to analysis capabilities that address the needs of high frequency design. The analysis capabilities include periodic-steady state solution for RF circuits, calculation of noise and distortion in the periodic-steady state, substrate coupling and electrothermal interactions. The research is partitioned into three areas: (i) development of new analysis capabilities for an integrated device-circuit- behavioral simulation environment; (ii) improvement of simulator performance so that it is valuable to designers of high performance and/or high frequency analog circuits, and (iii) application of the simulator to realistic design problems with particular emphasis on RFICs. A virtual lab environment is being developed to provide students training in circuit/device simulation and tool development with applications to real life design examples.